The Development of Shared Mental Models and Group Performance

Shared mental models of goals, tasks, group, and the environment allow members of work groups to coordinate with reduced communication, to effectively handle cognitive overload, and, hence, to perform more effectively. This research investigates the development of shared mental models, the tradeoffs between shared models and cognitive overload, and the effects of shared models on team coordination and performance. It also examines whether computer-based tools for communication and situational awareness can help teams develop useful shared models without increasing cognitive overload. The research studies teams both in realistic, multi-week, business simulations and in short-term laboratory studies with tighter control. The simulation studies examine the impact of communication and cognitive overload on the development of shared models. The laboratory studies systematically manipulate the overlap between team members' models to examine effects on performance. This research provides basic knowledge about how teams operate, with strong implications for the technology needed to support them. In addition, the research is developing robust techniques for measuring mental models, which can be used by others for system development and evaluation. http://www.cs.cmu.edu/~kraut/mental.models